Geometric Analysis, Wave Optics, and Geometric Gravity Models

Abstract

Award: DMS-0707003
Principal Investigator: Arlie O. Petters

The goal of this research project is to develop a mathematical
theory of the shadow patterns cast in the cosmos by the action of
gravity on light. The project aims to characterize the pointwise
total magnification and magnification cross section functions of
these shadow patterns, both in the geometric and wave optics
limits for certain key gravity models. This study requires a
geometric analysis of caustic singularities, diffraction
integrals, and asymptotics in a curved spacetime setting. The
proposed research would lay a platform for generalization a study
of shadow patterns to arbitrary Lorentzian manifolds, which in
turn would lead to a new exploration in Lorentzian geometry. The
findings will also yield a detailed gravitational lensing
comparison of current key geometric gravity models like general
relativity, PPN models, and braneworld gravity, allowing for
predictions that may test these gravity models.

Shadow patterns are all around us. We drive through them on the
way to work and swim among them in pools. Similar patterns are
also cast throughout the universe by the gravitational fields of
stars, galaxies, black holes, dark matter, and dark energy.
Perhaps even more mysterious is that these shadow patterns are
connected with one of the profound questions about the nature of
our physical world -- namely, whether physical space has more
than the familiar three spatial dimensions of length, width, and
height. This research will employ gravity's cosmic shadow
patterns to explore the nature of black holes and dark matter,
and the dimensionality of physical space. The work will also
formulate predictions that test Einstein's general theory of
relativity and other gravity models. The project is
interdisciplinary and creates a synergistic interaction between
mathematics, physics, and astronomy.